Ages of River Plumes and Freshened Coastal Waters Using Ra-224 and Ra-223

9314587 MOORE This research project will use short lived radium isotopes to determine the ages of freshened waters as these waters move and mix from the coastal zone into the open ocean. These techniques should enable marine scientists to tract the movement and mixing of coastal waters on time scales of a few days to several weeks. These studies will provide important information on the coupling between the coastal ocean and the ocean and the ocean interior. When combined with other studies, these techniques will enable oceanographers to assess fluxes of materials across the density gradient separating freshened coastal waters from the rest of the surface ocean. This work is based on a new measurement technique for short lived Ra isotopes, 224 Ra (half life = 3.6 days) and 223 Ra (half life = 11.4 days). Most of the effort will be devoted to technique development and verification initially. Field Studies will then determine (1) the rate at which the freshened river plume of the Mississippi River intrudes into the Gulf of Mexico and (2) the rate of mixing from near coastal waters across the inner and mid shelf region of the south Atlantic Bight.